RAPID: Vegetation Analysis in Support of LiDAR Data Acquisition for the Jemez River Basin Critical Zone Observatory

This project will conduct a field verification campaign of LiDAR over flights of the Jemez River Basin Critical Zone Observatory (JRB-CZO). A vegetation survey will be conducted in the summer and fall 2010 in order to provide ground truthing capability for the summer (snow off ) LiDAR data acquisition. This data acquisition is planned to cover the entire area of the Valles Caldera National Preserve (VCNP), as well as some area to the west of the VCNP that lies within the caldera boundaries and represents part of the headwaters to the Jemez River, but is nonetheless outside of the boundaries of VCNP.